Maintaining SURAnet Connectivity and Campus Networking: A Cost Sharing Venture

The Florida Institute of Technology will connect their campus network to SURAnet (Southeastern Universities Research Association network, a regional network which is part of the NSFNET). Direct connection to SURAnet will provide researchers with improved access to national networks such as CSNET/Bitnet and USENET. Improvement is sought in reliability, speed, turn- around, flexibility, and functions such as file transfer, remote login, and teleconferencing. The Florida Institute for Technolgy, through this connection to an external network, will be able to maximize existing local computing resources, facilitate access to external information and remote computing resources, and provide a connection for scholarly interaction with faculty and researchers in diverse geographical locations.